Polarization in Medium Energy Nuclear and Particle Physics

Measurements of spin degrees of freedom will be utilized to elucidate the reaction mechanisms contributing to few nucleon and hadron reactions. A majority of the measurements use high energy electron and photon beams at the Thomas Jefferson National Accelerator Facility. The few nucleon component utilizes a focal plane polarimeter, constructed jointly by William and Mary and Rutgers Universities, to measure spin transfer in reactions. One such measurement will provide an improved measurement of the electric form factor of the proton. The hadron component is centered at the large acceptance detector (CLAS) at TJNAF.